Texas Regional Enhancement Program for Underprepared PhysicsTeachers

Texas Regional Enhancement Program for Underprepared Physics Teachers is a model regional cooperative program to provide training in physics content and pedagogy for 24 underprepared high school physics teachers from the State of Texas. Three two-week summer workshops covering topics in classical, modern, and contemporary physics will be offered during the three year grant period. Academic year follow-up meetings and classroom visitations also are included to provide assistance with implementation and evaluation. Instruction in the program is carried out by a team consisting of highly experienced high school physics teachers (Physics Teaching Resource Agents) and a university faculty member. Participants will receive three units of graduate credit for successful completion of each year of the program.